Fifth Conference in Environmental Engineering Education

A conference on environmental engineering education is conducted. The focal issues of this conference include the integration of air, water, and land considerations in the practice of environmental engineering; the increasing role of computers in education, engineering practice, and research; and the incorporation of matters relating to design and operation of environmental engineering facilities and systems into education and associated research. The conference has been planned jointly by the Association of Environmental Engineering Professors and the American Academy of Environmental Engineers and is the fifth in a series initiated in 1960.